Science, Technology, Engineering and Mathematics Scholars Program

Scholarships are being awarded annually to twenty-eight full-time students pursuing STEM majors who demonstrate both academic potential and financial need. The scholarships are renewable for a maximum of four years provided the student maintains financial and academic eligibility. Special efforts are being made to attract academically talented students from underrepresented groups including women. The scholars are attending a seminar series and have the opportunity to join faculty-led research programs or be placed in internships sponsored by industrial partners. Additionally, the scholars are participating in a mentoring program designed to increase both the retention and graduation rates of STEM majors.